Million Book Project Meeting

This proposal will fund a workshop which brings together leading US librarians and computer specialists to address the needs for quality information in digital libraries. It will address selection of materials for scanning and content needs for large-scale digital libraries, in conjunction with the major scanning project being directed by CMU. It will survey national needs and opportunities in the digital content area.

The workshop will take place in Pittsburgh, Pennsylvania on November 15 and 16, 2001.